Boston Area gigaPoP

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for the installation and operation of a Boston area "gigaPoP" network which will be a joint project between MIT, Harvard and Boston University. This PoP will also provide a connection to the MCI POP for access to the Very High Performance Backbone Network Service (vBNS). Applications include: - Quantitative Microscopy and Imaging Network - Networked Multimedia Information System - Advanced X-Ray Astronomical Facility - Advanced Visualization Projects Collaborating with: - Boston University - Carnegie Mellon University - Dartmouth College and Medical School - Harvard University - Northwestern University - Stanford University - University of Chicago - University of Hawaii - University of New Hampshire - University of Maine - Yale University The award provides partial support of the project for two years.